Rigidity in Homogeneous Dynamics with Connections to Number Theory

The project involves measure rigidity of higher rank partially
hyperbolic abelian actions and applications thereof. It is
conjectured that under certain circumstances there are very few
probability measures both invariant and ergodic under such actions
(Furstenberg, Margulis). So far all of the current work relies on
the additional assumption of positive entropy (Johnson, Rudolph),
and sometimes on additional ergodicity along critical directions
(Kalinin, Katok, Spatzier). Substantial progress has been made
recently in avoiding unnecessary ergodicity-type assumptions as
well as in applications of measure rigidity (Einsiedler, Katok,
Lindenstrauss). Einsiedler will continue his study of invariant
measures avoiding additional ergodicity-type assumptions, work on
disjointness properties of various higher rank dynamical systems,
further applications of rigidity, and related algebraic topics.

The theory of dynamical systems is a relatively new, but important
mathematical theory with many connections to other parts of
mathematics as well as other sciences such as physics,
meteorology, or computer sciences. Historically it developed from
the study of the evolution of a deterministic but complicated
physical process (for instance in celestial mechanics) over time.
Especially if this process is too complicated to predict long term
outcomes precisely, the theory of dynamical systems is important
because it can give qualitative predictions. More recently
symbolic dynamics turned out to be crucial to find efficient and
safe coding algorithms in computer sciences. There is also a long
tradition of using dynamics to solve problems in other areas of
mathematics. The study of higher rank dynamical systems (where
time has more than one dimension) has received much attention
during the last years, in part again because of its connections to
physics (in particular statistical mechanics) and computer
sciences (higher dimensional data storage methods). The proposed
research links three separate areas of mathematics, namely ergodic
theory, Lie theory, and algebra. The rich interplay among these
fields helps to attack problems by using tools from different
areas. The most prominent connection is between dynamics on
homogeneous spaces and number theory, which holds the key to
problems in the theory of Diophantine approximation. However, the
theory of dynamical systems can benefit from this interaction too
since dynamical systems of algebraic origin are often more
amenable to a detailed study of their dynamical properties while
the phenomena encountered are interesting in the larger context of
general dynamical systems.